Tri-College Consortium Connection to NSFNET

9318587 Chase Sweet Briar College on behalf of the Tri-College Consortium requests support from NSF for connection of their campus networks to VERnet. The Tri-College Consortium comprises Sweet Briar College, Randolph-Macon Woman's College, and Lynchburg College. VERnet, the mid-level network offering services in Virginia, will provide operations management and information services and it will give the consortium 3 56 thousand bits per second connections to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. Students and faculty research will benefit from the link. By linking to the mid-level and national networks the Tri-College Consortium's faculty and academics will maintain a position of leadership in research and educational innovation by profiting from remote access to super computer centers, data bases and information services, high speed communications, file transfer and remote login, and access to library resources. This is also a unique opportunity for the school to explore innovative educational resources.